The Middle School Science Leadership Consortium: A Partnership Between The City College of New York and Community School District #2

9618821 Marin This project, sponsored by City College of New York in partnership with New York City School District #2 is a three year project which will enhance Middle School teachers in science content based upon nationally validated science curriculum materials. Each year 60 teachers from grades 5-9 will be provided an equivalent of seven weeks of in-service activities which will strengthen the teachers' content knowledge, allow them to carry out inquiry strategies in the classroom and develop leadership capabilities so that they will be able to do in-service activities with peer teachers. A group of these teachers will continue to participate in the program in ensuing years. As a result of the project it is expected that the district will develop a comprehensive Middle School science curriculum framework, provide the school with exemplary science materials, provide in-service opportunities to all teachers and set up two permanent Science & Technology Instructional Centers for the teachers in the District to use as a resource. Matching funds constitute 33% of the NSF award.